Experimental Kits on Ionizing Radiation for Students from Middle to Medical School

This Small Business Innovation Research (SBIR) Phase I project has as its purpose the de-mystification of the subject of ionizing radiation by producing small bottles of superheated material suspended in a gel which would allow students from middle school to medical school to "see" radiation and to "test" for it using everyday materials with natural radioactivity. These portable bubble chambers can be put in a student's pocket. When radiation of sufficient energy (an stopping power) interacts with atoms within the liquid drop, it will suddenly vaporize, producing a clearly visible bubble and an easily audible "pop." The rate of bubble formation indicates the radiation flux, and the total bubble production is a measure of total radiation exposure. These kits can also be used in educating the lay public on issues concerning nuclear power, nuclear weapons, and nuclear safety.